POWRE: A LIDAR Study of Hatteras and Ocracoke Islands Between 1996 and 1998

The PI is completing Light Detection And Ranging (LIDAR) training, and initiating research on barrier island dynamics using LIDAR data from the coastline of Hatteras and Ocracoke barrier islands. The PI is using LIDAR topographic data from 1996, 1997 and 1998 to quantify severe storm impact along a portion of the eastern US barrier island system. She will 1) quantify shoreline position and change on an annual basis during intervals with and without storms, 2) quantify the volume of material eroded and accreted both along and across the barrier islands, 3) assess the variation in barrier island response of sections of the island that were heavily stabilized by fences and vegetation during the 1930's and 1940's, and 4) quantify the change in length and position of beach cusps during storm and non-storm years.